Two Conferences in Logic at Notre Dame

The Notre Dame logic group will invigorate broad discussions among faculty
and students across logic through a conference and a short summer school
course. During a week-long Conference on Vaught's Conjecture and
Classification of Countable Structures in May of 2005, model theorists,
computability theorists and descriptive set theorists will share their
different perspectives on this long-intractable problem and the research it
has spawned. A June, 2005, two-week Short Course in Proof Theory, aimed at
graduate students in mathematical logic, computer science and philosophy,
will fill a gap in the educational experience of students in the U.S.\ and
promote interdisciplinary interaction.

The course in proof theory is deliberately designed to foster interaction
between graduate students in mathematics, computer science and philosophy.
The venue will broaden the student's perspective on their scholarly pursuits
and career options.

Vaught's conjecture has been studied from the perspectives of different
disciplines for decades. The purpose of the conference is to share these
different perspectives with a focus on the problem rather than the tools.
The interdisciplinary nature of Conference on Vaught's Conjecture and
Classification of Countable Structures will have the added benefit of making
the talks more accessible to graduate students at all levels.